Crossing Boundaries: Summer Training Institute in Law and Social Science

9422669 Sarat This proposal supports a Summer Institute in 1995. The institute is sponsored by the Law and Society Association. Its theme is "Crossing Boundaries," and it focuses on introducing graduate students and other new entrants to the varied strands of research and analysis in the law and society field. It pays attention to the core debates and questions about boundary-crossing that serve to integrate the field. Publication of materials prepared for the institute will extend the impact of the effort. Another important purpose of the seminar is to increase the cultural diversity of the field through the recruitment to the institute of scholars representing groups traditionally underrepresented in the law and society field. %%% This proposal supports a mentoring activity to assist in the develop of scientists in the law and society field. The activity is a Summer Institute to be held in 1995 under the auspices of the Law and Society Association. Its theme is "Crossing Boundaries," and it focuses on introducing graduate students and other new entrants to the varied strands of research and analysis in the law and society field. It pays attention to the core debates and questions about boundary-crossing that serve to integrate the field. Publication of materials prepared for the institute will extend the impact of the effort. Another important purpose of the seminar is to increase the cultural diversity of the field through the recruitment to the institute of scholars representing groups traditionally underrepresented in the law and society field. ****